Workshop: Neural Information and Coding Workshop: March 6 thru 9, 1999: Big Sky, Montana

Nirenberg, Shelia
IBN-9818445

The Neural Information and Coding Workshop (NIC) is a small (-60 people), intensive, three-day meeting devoted to the neural code. The objectives are two-fold: to bring together experimental and theoretical neuroscientists to share new ideas and results, and to discuss how new experimental and theoretical approaches can be combined to better understand neural coding.

Three kinds of participants are included: 1) experimentalists working on various aspects of this problem (although this group is growing rapidly, it is not yet a community, so relevant advances can go unnoticed without a forum for presentation); 2) experimentalists who are developing new technologies, such as optical imaging and multi-unit recording, that will be necessary for further progress; 3) theoreticians, since we do not currently have a unified frame work for thinking about the neural code.